Support for Innovative Applications of High-Performance Computing in Houston

This award is made under the high performance connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for OC-3 ATM connections to Rice University, Baylor College of Medicine and the University of Houston for two years. Among the numerous applications are those involving distributed parallel computing, immersive collaborative environments, imaging for molecular genetics and structural biology, computational biology and bioinformatics, and computational engineering.